Timing of Proterozoic Tectonics in Southwestern North America: The Use of Microprobe Dating and Age Mapping for Constraining P-T-t-D Histories

9909421
Williams

A full orogenic cycle, from immature islandarcs to accretion to stabilization of crust commonly involves multiple deformational events. One of the challenges of structural and metamorphic analysis is to deconvolute the overprinting effects and deduce the crustal setting and history of ancient mountain belts. Absolute timing constraints are critical for interpreting the significance of structures and metamorphic assemblages, however due to costs are often a limiting factor in tectonic studies. This proposal is to apply the techniques of electron microprobe chemical dating and age mapping to the Proterozoic orogenic belt of southwestern North America, with the goal being to integrate geochronology into routine petrologic and structural analysis, and simultaneously to provide a new resolution on the pressure-temperature-time-deformation history of this important orogen. Results are expected to refine the technique as well as shed light on accretion and stabilization events in the proterozoic of southwestern US.